The Dynamics of Interest Group Behavior: A Study of Campaign Contributions

9515347 Rothenberg This project investigates theoretically and empirically the nature of the interactions that govern the relationship between politicians and organizations. Theoretically, the researchers develop a dynamic framework that specifies how the motivations on each side impact each other given the institutional structure under which groups and politicians transact their business. Empirically, they test hypotheses derived from this game theoretic perspective using an extensive data set and more general econometric techniques than previously employed in the relevant literature. The results permit the researchers to draw inferences about the interplay of interest group motivations and whether the institutional framework that structures the connections between external organizational actors and elected politicians makes long-term alliances a realistic possibility. This research promises to substantially enhance our understanding of the topic. ***